REU Site: American Economic Association Summer Training Program

This award provides support to the University of Colorado, Denver to host the American Economics Association Summer Training Program. A primary goal of this program is to increase the number of minorities in the economics profession. This Research Experiences for Undergraduates (REU) Site is a nine-week program for 15 student participants aimed at strengthening their analytic skills and to demonstrate the relevance and excitement of economics as a profession. The program will combine hands-on empirical research with honors-level coursework in economic theory, econometric methods, and mathematical economics. Weekly workshops and seminars by outside speakers will familiarize students with policy issues and career options.

This award contributes to the Foundation's continuing efforts to attract talented students into careers in science through active undergraduate research experiences.